Fault Diagnosis and Reconfiguration in Networks

The research addresses two classes of problems for reconfiguring the interconnection architecture for a multiprocessor computer system to insure its continued performance, possibly in a degraded mode after the failures of some parts of the system. Two somewhat distinct aspects of this problem are studied: 1) Automatic identification of faulty units (processors) in such systems have been extensively studied by this investigator and others, including the design of a fully distributed algorithm for this purpose. The investigator will use distributed gossiping in a faulty environment to design an algorithm for the identification of faulty units. The algorithm is fully distributed and far more efficient than existing algorithms. 2) There are multiprocessor systems which require a particular interconnection architecture (network) for their continued performance. The researcher intends to study further the ways in which some redundancies in the network can be introduced so that a desired interconnection architecture is preserved even if certain numbers of units fail.